CICI: IPAAI: DRIVE-AI: Data provenance, Robust Inference, and Verification for Learning-Enabled Autonomous Vehicles

Artificial intelligence (AI) systems increasingly help autonomous vehicles interpret sensor data and make decisions that can affect people, infrastructure, and transportation services. These systems depend on data from cameras, radar, lidar, vehicle-to-everything messages, and other sources that may be noisy, incomplete, or intentionally manipulated before reaching AI models. Current cyberinfrastructure often cannot determine whether a sensor input is trustworthy, how a questionable data point influenced later model behavior, or how to recover when corrupted data affects decisions. This project addresses these gaps by developing data integrity, provenance, and recovery methods for learning-enabled autonomous vehicles. The project advances the national interest by supporting safer transportation, more trustworthy AI, and cyberinfrastructure that can better withstand data manipulation.

The project develops an integrated framework for data provenance, robust inference, and verification across the sensor-to-decision pipeline. Its scope includes integrity-aware sanitization methods that use physical consistency and model-sensitivity checks to flag or down-weight questionable inputs; cryptographic influence graphs that record how data and transformations affect model states and decisions; and provenance-guided detection, attribution, and recovery methods that help identify data sources associated with failures. The framework is evaluated using a campus-scale autonomous vehicle testbed and multimodal sensor data from realistic operating conditions. The resulting methods, tools, datasets, and educational activities are expected to support reproducible research, broaden training in AI security and cyber-physical systems, and help researchers and practitioners design autonomous systems that are more transparent, resilient, and accountable.